Women in the Geosciences: A Working Conference

The proposal is to provide support for a conference of experienced women geoscientists to (1) identify the elements contributing to the underrepresentation of women in science and technology, and (2) develop recommendations for actions to rectify the problem. The discussion topics will include tenure for women in academic institutions, empowerment of women geoscientists (leadership, policy-making, visibility), the pre-college "pipeline", and women who are ethnic minorities.